Establishment and Operation of a Multidisciplinary Deep- Water Oceanographic Station North of Oahu, Hawaii

This project marks the beginning of a long time series hydrographic station north of Hawaii, which will constitute a contribution to both the World Ocean Circulation Experiment (WOCE), and the Global Ocean Flux Study (GOFS). Hydrographic observations, and current meter and tracer data will be collected, analysed, and disseminated to the community. The data collected will provide information for the Pacific similar to those now collected near Bermuda at what has come to be called the Panulirus Station.